Interpreting Finger Lakes Geoscience: A Planning Grant

A regional system of collaborative geoscience interpretation for the Finger Lakes region of New York State will be undertaken. The Museum of the Earth (MOTE) will be the interpretive hub and partnerships with six Finger Lakes State Parks, Cornell University and the Paleontological Institute are in place to provide field sites and geology content information.

The integrated interpretive system of signage and related exhibits will be assessed as to reaching the needs of the target audience by way of extensive front end evaluation. The development of the geoscience content and prototyping of the signage will continue throughout the planning period.